ATLAST 1995/96

ATLAST 1995/96 is a follow-up to the NSF sponsored ATLAST Project to Augment the Teaching of Linear Algebra through the use of Software Tools. The purpose of ATLAST is to encourage and facilitate the use of software in the teaching of Linear Algebra. The project seeks to bring about systemic change in the way Linear Algebra is taught. The goal of ATLAST is to make the use of software an integral part of all Linear Algebra courses. ATLAST 1995/96 is offering two basic workshops on the use of software in teaching Linear Algebra in 1995, one basic workshop in 1996, and one advanced workshop in 1996. Workshop participants are learning to use existing Linear Algebra software packages and how to incorporate those packages into their courses. Participants are expected to design their own computing exercises and projects at a level suitable for an undergraduate Linear Algebra class. These exercises are being class tested during the school year following the workshop and then submitted for inclusion in the ATLAST database. The best of the ATLAST 1995/96 exercises are being included in a second ATLAST Exercise Book which is being published by the Mathematical Association of America. Selected ATLAST materials are included in the Mathematics Archives at the University of Tennessee, Knoxville. These materials can be accessed by the greater mathematics community through the Internet. ATLAST 1995/96 is also offering one advanced workshop for those who are already experts at developing computer exercises for Linear Algebra. The purpose of this workshop is to develop exercises for the second ATLAST book. Participation in the advanced workshop is by invitation only.